Atmospheres of the Icy Galilean Satellites

Brown, Michael
California Institute of Technology
AST 99-73151

Professor Brown and his graduate students will observe, monitor, and model the atmospheres of the icy Galilean satellites. These satellites provide the only opportunity in the solar system to compare four bodies which have similar sizes and temperatures, but have large differences in their atmospheres. The similarities and differences among the satellite atmospheres will be used to study the processes that create, regulate, and destroy the tenuous atmospheres of these moons. The majority of the observations of the faint emission from these atmospheres will be made using the high resolution spectrograph on the 10-meter Keck telescope. The extended sputtered atmospheres will be observed by studying the resonant emissions of sodium with a method similar to that which has been used to study Io's extended atmosphere for the past two decades. A newly developed technique of monochromatic eclipse imaging of electron-impact excited atmospheric species will also be used to study the atmospheres much closer to the surface of the satellite. This technique allows ground-based study of the dominant water-derived species, which, until now, have been detected only from space-based observatories.